Sixth European Set Theory Conference

This award supports participation by early-career US-based researchers in a high-profile international meeting on set theory to be held July 3-7, 2017 under the auspices of the European Set Theory Society, in the Alfred Renyi Institute Budapest. This meeting, the 6th European Set Theory Society Conference, provides opportunities for early-career researchers to interact with experts in the field, to attend tutorials on recent techniques, and to hear reports of the latest research being undertaken. The homepage of the meeting is: https://sites.google.com/site/6thestc/home

Advances in the recent decade in set theory have been rapid. New techniques in previously impenetrable areas have exposed interplay between the prima facie disparate areas of forcing axioms, infinite cardinal combinatorics, and inner model theory. Although there have been some tremendous progress on the core problems of set theory, still some fundamental problems remain a mystery. The scope of the conference will include: the theory of definable actions of Polish groups, the structure and classification of their orbit spaces, the closely related study of definable equivalence relations and complete classification problems (in model theory, computability theory, groups representations, topological dynamics, ergodic theory, operator algebras, and combinatorics), advances in the study of PCF theory, cardinal arithmetic, the determination of the consistency strength of combinatorial principles, and application to other fields of mathematics.